Indian Ocean WOCE Hydrographic Section I10

9413175 Bray In this project, the PI will lead the data collection effort on a hydrographic section between Indonesia and Australia, designated as line I-10 of the Indian Ocean Expedition (IOE) of the World Ocean Circulation Experiment (WOCE). Conductivity, temperature, oxygen, nutrients, Chlorofluorocarbons, and Helium/Tritium will be sampled. In addition, Acoustic Doppler Current Profiles will be obtained, and 10 ALACE (Autonomous LAgrangian Current Explorer) floats will be deployed. Line I-10 is crucial to understanding the amount of flow entering the Indian Ocean from the Pacific Ocean, and its measurement on this section, as well as on other sections by other countries will provide a key to interpreting all the other measurements made in the IOE.